Oceanographic Instrumentation

The Scripps Institution of Oceanography of the University of California at San Diego has requested several items of oceanographic instrumentation to be placed in a pool of shared use equipment. This equipment is maintained for use on or in association with the four research vessels operated by the institution. A substantial part of the ships' operating schedules during 1988 is in support of NSF-sponsored research projects. The instrumentation will also increase the capabilities of the ships and of the institution to support research and engineering activities. The instrumentation includes: -Towing boom for an seismic profiling system airgun array, -Acoustic Doppler Current Profiler for continuous measurements of subsurface circulation features, -Autoanalyzer for making precision measurements of several chemical parameters, -A CTD for obtaining detailed profiles of seawater conductivity and temperature as a function of depth, -an echosounder for display of seafloor profiles, and -a control system for a seismic airgun array. The Univrsity of California is cost sharing in the acquisition of this equipment. The instrumentation described above will increase the capability of the organization to support NSF-sponsored research and engineering projects.